Dynamics of Fiber Suspensions and their Applications

The investigators will develop robust, accurate, and cost-effective
methods for simulating the dynamics of suspensions of flexible fibers
in a Stokesian fluid. Flexible fibers make up the
micro-structure of suspensions that show strongly non-Newtonian bulk
behavior, such as elasticity, shear-thinning, and normal stresses
differences in shear flows. By taking a nonstandard approach to this
problem, and designing a numerical algorithm based on a nonlocal
slender-body approximation to hydrodynamical interactions, it is
possible to simulate problems not feasible with standard methods. As
this numerical method has a firm mathematical foundation, method
design can be approached as a numerical analysis problem, carefully
treating issues of accuracy and stability in algorithm design.
Technical obstacles to be addressed are the accurate inclusion of
lubrication forces when filaments approach each other, and the
development and application of fast summation strategies for
evalluating filament-filament interactions. The investigators will
also develop especially efficient methods for the special case of
rigid filaments. They will apply these methods to a set of current
theoretical issues, such as the development of normal stress
differences in flexible fiber suspensions, the effect on fluid mixing
of storing and releasing elastic stress in the fluidic microstructure,
and the large-scale dynamics of rod-like self-locomoting elements (as
arises in modeling bacterial baths)

The dynamics of microscopic flexible fibers immersed in a fluid are
essential to understanding many current problems arising in biology,
engineering, and physics. Examples range from manufacturing processes
in the pulp and paper industries to new proposed methods for mixing
fluids in small devices to the locomotion of micro-organisms. These
are all complicated systems whose dynamics are not well understood, in
part because the large-scale dynamics of the flow can depend on the
detailed nonlinear dynamics of the microscopic fibers. To help
increase our understanding of such problems, the investigators are
developing efficient and accurate methods for numerically simulating
the dynamics of such systems with many interacting fibers. They will
apply these methods to a set of current applications, drawn from the
basic physics of fluids, engineering, and biology.